Research on Topological Design Tools for Structured Logic Arrays

Research continues on highly automated software tools which produce VLSI-structured logic designs which are correct by construction. Emphasis in the research is on synthesis of multilevel Boolean Networks with the following specific research objectives: satisfy all ;ita priori;ro design rules, specifications, and constraints whenever possible; and provide a unified theory of disparate logic synthesis techniques, including 2-level logic minimization methods, local transformation, don't-care techniques, and others. A longer-range objective is an investigation of possible applications of these synthesis techniques at the functional level. The final goal is "silicon compilation," i.e., automated synthesis of a given behavioral specification (e.g., system architecture and instruction set) into specified target layout technologies. Test cases of complete microprocessor synthesis are studied.